Body Waveform Studies of the Structure and Tectonics of Subduction Zones and Back-Arc Rifts

This research involves the investigation of the seismic structure and tectonics of back-arc spreading centers and subducting slabs using body waveforms. The structure of back-arc basins undergoing current extension will be compared to the structure of inactive backarcs, and the width of the zone of low seismic velocity and high attenuation beneath backarc rifts will be determined. Also, the configuration of possible aseismic extensions of slabs into the lower mantle will be investigated by means of S-wave residuals. In both studies, earthquake body phases along several paths will be utilized to reduce the effect of earthquake location and seismic structure uncertainties.